THIS IS A TEST LETTER. THIS IS A TEST LETTER. THIS IS A TEST LETTER. THIS IS A TEST LETTER. THIS IS A TEST LETTER.THIS IS AS TEST LETTER. THIS IS A TEST LETTER. PYI PYI PYI

This grant allows Ferris State University to integrate state-of-the-art, "Field-to-Finish" technology into the surveying and mapping curriculum. The surveying system consists of an electronic theodolite and distance meter, electronic field data collectors, microcomputers, and a plotter. Over 60% of the practitioners in the surveying profession are using form of "Field-to-Finish" system. This award is being matched by an equal amount from the principal investigator's institution.